Controlling the Chaotic State in Ferromagnetic Response

9400263 Wigen Technical abstract: Chaos is a complicated and often undesirable behavior. The ability to control chaotic behavior is a special attribute that may be beneficial to many applications. The chaotic attractor includes an infinite number of unstable orbits. By applying a well defined perturbation to a system variable it is possible to control the behavior of a chaotic system by stabilizing one of these unstable orbits. By modifying the perturbation the selected orbit may be varied permitting a variety of orbits that are not readily available in a conventional linear system. It is proposed to utilize perturbation of the magnetic field to control the chaotic behavior observed in the ferromagnetic resonance signal. Non-technical abstract: The complex behavior of a chaotic system is commonly known and widely recognized in many systems from bridges and the weather to heart fibrillation and brain signals. In many systems significant effort is made to eliminate the conditions that lead to this chaotic behavior. However, with the recent evolution of "controlling chaos" it is possible to put the system into one of a number of unstable behavioral patterns that are present in a chaotic system. By applying an appropriate control signal it is possible to stabilize these desired patterns. This behavior leads to an increased flexibility in many systems giving rise to new applications and environments. ***